Doctoral Dissertation Research in Geography and Regional Science

The interrelationships among politics, ideology, and the economics of industrial organization have direct relevance to focal issues in industrial geography: the spatial location of industrial enterprise, the constraints on decision making imposed by various ownership patterns, and decisions about the introduction of new technology. Within the country of Israel, a remarkable diversity of production structures coexists. Production structures are characterized by the way in which the labor process is organized and by the distinct political and ideological structures that regulate the production process. This doctoral dissertation project will apply recent theoretical insights in the field of industrial geography to compare the organization of production and the location of industry in four distinct production structures--the kibbutz, Histadrut (labor federation), government, and private industry. This research will relate the industrial restructuring taking place at the level of the firm in Israel to the distinct economic, political, and ideological characteristics of each production structure and to the economic, political, and ideological restructuring taking place at the national level. The doctoral student will conduct twenty firm-level analyses, five for each production structure, and the validity of the findings from the individual firm-level analyses will be tested and compared to empirical findings of the contribution of each production structure to the Israeli economy in general over the last thirty years. This project will contribute to our understanding of the extent to which organization and location of industry in these production structures is constrained and motivated by political and ideological elements in the use of space, labor supply and demand, the application of technology, organizational structure, and the availability of capital. It will expand our understanding of location theory as it applies to capitalist economic development, and it will add the dimension of space to the study of industrial restructuring. The project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.